Doctoral Dissertation Research: Maximizing Law's Impact: Early Enforcement of Title VII and Institutional Transformation of the State

This dissertation project involves testing the relations among law, state institutional capacity, and societal transformation by conducting and in-depth historical analysis of early implementation of Title VII of the 1964 Civil Rights Act. Despite ant initially ambiguous statues and weak enforcing agency, Title VII was aggressively enforced and has had an enormous impact on the resources available to minority groups in the workforce. The research explores primary documents in presidential libraries, EEOC's administrative history from its archives, and the memos, papers, and correspondences of influential organizations such as the NAACP will provide data. The results of this research will advance sociolegal theory about state centered enforcement and state institutional transformation and offer tests of the conditions under which 'weak' state administrative structures become `strong.` %%% This dissertation project involves testing the relations among law, state institutional capacity, and societal transformation by conducting and in-depth historical analysis of early implementation of Title VII of the 1964 Civil Rights Act. Despite ant initially ambiguous statues and weak enforcing agency, Title VII was aggressively enforced and has had an enormous impact on the resources available to minority groups in the workforce. The research explores primary documents in presidential libraries, EEOC's administrative history from its archives, and the memos, papers, and correspondences of influential organizations such as the NAACP will provide data. The results of this research will advance sociolegal theory about state centered enforcement and state institutional transformation and offer tests of the conditions under which 'weak' state administrative structures become `strong.`